Research Experiences for Undergraduates at Eastern Michigan University

Dr. Maria Clelia Milletti and other members of the Chemistry Department of Eastern Michigan University are being supported for a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry- analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the aim that the students will develop in maturity and capability for independent research, along with learning new laboratory techniques and analytical skills.